Operations of the CEDAR Science Steering Committee

This award supports the activities of the Coupling, Energetics, and Dynamics of the Atmospheric Regions (CEDAR) Science Steering Committee (CSSC). The CSSC is composed of representatives from the atmospheric sciences community appointed by the National Science Foundation (NSF) and provides a formal mechanism for communication between the community and the NSF's Aeronomy and Upper Atmospheric Facilities Programs. The CSSC helps set the direction and agenda for the CEDAR program and coordinates the program's activities with other national and international programs. The nominal activities of the CSSC are: (1) to convene the annual CEDAR workshop in Boulder, Colorado each June and to meet at NSF each fall; and (2) to publish the CEDAR newsletter three times per year. Specific tasks over the next two years include the implementation and initiation of collaborative studies with the NASA TIMED Satellite Program and conducting a contiguous CEDAR-STP symposium in June 2001. This proposal requests funds to support the CSSC's activities over the next two years.